Applications of model theory to cotorsion modules

The theory of purity that arises in abelian group theory and, more generally,
module theory may be developed (Crawley-Boevey) in the setting of a locally finitely
presented category. The prototypical example of such a category is the category of
flat (left) modules over a ring R. The pure-injective objects of the category of
flat R-modules are the flat cotorsion modules. The existence of cotorsion envelopes
in the category of left R-modules is a consequence of the Flat Cover Conjecture
(proved by Bican, El Bashir and Enochs). The project proposes to develop a theory of
flat cotorsion modules that generalizes the classical theory of pure-injective modules
over R.

Ring Theory is the area of Algebra that concentrates on the interaction between possible
notions of multiplication and addition. The representation theory of rings, better known
as Representation Theory, is devoted to the study of modules. These mathematical structures
generalize the concept of a vector space and provide a medium where such instances of
multiplication and addition may manifest themselves. The Model Theory of Modules proposes
to understand modules from the point of view of Mathematical Logic. Thus one is not only
interested in solving linear equations, but also in deciding when a sentence in the
appropriate formal language becomes true when it is assigned a given interpretation.
The modules that arise most naturally from this point of view (and are the subject of
this project) are the pure-injective, or algebraically compact, modules. They also occur
prominently in the classical (non-logical) approach to Representation Theory and so provide
fruitful ground for further interaction between Algebra and Mathematical Logic.